NER: Molecular Diode and Molecular Nonvolatile Memory

PROPOSAL NO.: 0102765
PRINCIPAL INVESTIGATOR: Choi, Jaewu
INSTITUTION NAME: Louisiana State University & Agricultural and Mechanical College
TITLE: NER: Molecular Diode and Molecular Nonvolatile Memory

The proposed research program addresses the challenges and opportunities
available with molecular diode and molecular nonvolatile memory. The proposed
molecular diode and molecular nonvolatile memory can be achieved with carbon
nanotubes functionality and heterostructure of carbon nanotubes with a ferroelectric
linear polymer.
The carbon nanotube, itself, has many functional properties, such as quasi-one
dimensionality, metal-semiconductor, mechanical stiffness, capillarity, high aspect ratio,
large surface area, and chemical stability. In application of these carbon nanotubes to the
electronic devices, one serious obstacle is handling the chiarlity, which plays an
important role in determining the metallic-semiconducting behavior of the carbon
nanotubes. The proposed research program allows us to overcome these difficulties by
utilizing the carbon nanotubes as a backbone for a diode and a sensor for a nonvolatile
memory.
First of all, the proposed molecular diode consists of the differentially doped
single carbon nanotube. This is based on our own research work on the electronic
structure study of the modified carbon nanotubes by ion-bombardments, alkali metal
doping, and atomic and molecular gas adsorption. These recent studies show that the
density of states near Fermi level, work function, and band gap of the carbon nanotubes
can be tunable. Therefore, it does not require any junction of two carbon nanotubes with
different chirality to make a molecular diode, which has been suggested in a theoretical
calculation by growth of a single carbon nanotube with different chiraity. To make a
diode from a single carbon nanotube in this proposed research program, the half of the
tube will be doped with p-type acceptor (like oxygen or fluorine) and the other half will
be doped with n-type donors (alkali metals) using screening doping.
Secondly, the proposed molecular nonvolatile memory is a heterostructure of a
carbon nanotube and a ferroelectric linear polymer with a permanent dipole moment. The
carbon nanotube has been studied as a gas sensor and a gas-storage. Adsorption of gas on
carbon nanotube induces the conductivity change and band gap opening. In this proposed
carbon nanotube-ferroelectric polymer heterostructure, we are going to detect the
conductivity change of the carbon nanotube due to the electric dipole reorientation of the
ferrolectric polymer by applying the normal TTL (transistor-tansistor logic) voltage.
Therefore, the carbon nanotube-ferroelectric polymer heterostructure is the combination
of the sensor and information storage. The interface between the carbon nanotube and the
ferroelectric polymer, PVDF, of the proposed heterostructure systems is changed from
the hydrogen or fluorine rich to the hydrogen and fluorine mixture across the
conformational switching from all trans to gauch-trans-gauch bar with variation of
temperature or applied voltage (a gate voltage). This is the working principle of the
proposed molecular nonvolatile memory.
Through this proposed program on molecular diode and molecular nonvolatile
memory, graduate and undergraduate students will be involved and trained in the cutting-
edge research area (an emerging area of nanoscale science and technology, in special
molecular electronics) of science and technology with advanced synchrotron and
microfabrication facilities.